Creep Study of Aluminum and Magnesium Strengthened with High Volume Fractions of Oxide Dispersoids

9417636 Dunand This grant examines the high temperature mechanical properties and microstructure of oxide dispersion strengthened (ODS) aluminum and magnesium alloys. A unique combination of particle size, volume fraction, and grain size allows the probing of the fundamental mechanisms of dispersion strengthening. The alloys feature oxides with: (1) volume fraction from 20 to 30 vol.% (above typical values for mechanically-alloyed or precipitation-strengthened alloys); (2) particle sizes between 0.2 and 0.8 microns (smaller than metal matrix composites, but larger than mechanically-alloyed or rapidly-solidified alloys); (3) grain sizes that are either very fine, 0.5 microns, or very coarse, 1 centimeter, spanning a larger range of sizes than most dispersion strengthened alloys. Samples are tested in uniaxial tension at elevated temperatures in a range of strain rates. Transmission electron microscopy is used to study dislocation interaction with oxide particles. This research allows examination of issues such as the nature of the threshold stress, dislocation climb phenomena at particle-matrix interfaces, and the role of grain and subgrain boundaries in the deformation of dispersion-strengthened alloys. %%% The scientific goal is to correlate the microstructure with the mechanical properties through micromechanical modeling of the dislocation-particle interactions in the novel situation of very high volume fractions of unshearable particles. This research could lead to improved high temperature, lightweight metal alloys for structural applications. ***